III-CXT: Process Families and Their Application to Online Dispute Resolution

This research will evaluate a generative approach to creating families of processes, by generating families of Online Dispute Resolution (ODR) processes, and evaluating them through use at the National Mediation Board (NMB). The generative approach will be guided by NMB specifications of process goals, which will vary in emphasis according to different weightings of both tangible goals, such as resolving a specific conflict, and such nontangible goals as empowerment and relationship-building. The process families will be generated by binding different combinations of process concerns, such as coordination, agent behaviors, and artifact flows, into a high-level metaprocess framework. The generated process instances will also include specified instrumentation and measurement vehicles. This will facilitate the evaluation of the processes by NMB and project researchers and will form the foundation for evaluation of the overall generative approach. This approach will require a process definition language that features clear separation of concerns. An example is the Little-JIL process definition language, developed at UMass, which will be used as the basis for this research. The project will add to understanding of process generation and process technology in general, while also creating useful processes for the NMB, and a superior framework for social science experimentation with dispute resolution processes as well as processes in general. The project team includes computer science researchers, an ODR expert, dispute resolution researchers, and representatives from the NMB. The team has conducted successful NSF-funded research on a previous project, whose results indicate the need for the research proposed here.

Intellectual Merit: This project continues the exploration of the value of using software engineering perspectives and technology to deal with processes as rigorously definable objects. The main issue addressed here is the management of families of processes. Previous research indicates that organizations like NMB require families of processes, rather than a single process, and that such processes may not always be aimed at producing a single product nor one that is tangible. Use of a process definition language featuring clean separation of concerns seems to be a promising way to address these needs, and that approach will be pursued and evaluated in this research, thus making an important contribution to understanding the formal nature of processes. A process generation framework will be built and used to generate real ODR processes that will be used and evaluated by the NMB. The rigor and precision of these processes, and their incorporation of vehicles for evaluation, will facilitate the comparison of processes that differ in precisely documented ways. This will be an important contribution to social science research, supporting the ability of social scientists to perform precise experimentation with processes, with ODR processes being used as a first example.

Broader Impact: The ODR processes provided will be of considerable value to the NMB in a number of ways. The processes will improve NMB's effectiveness in dealing with disputes in the airline and railroad industries. They will also serve as an aid that NMB can use to train new personnel. The clarity and precision of the processes will render them suitable subjects for ongoing discussion and evaluation, leading to improvements in conflict resolution effectiveness. Moreover, success at the NMB will demonstrate the applicability of these ideas and approaches to the dozens of other government agencies responsible for dispute resolution.